CC*DNI Campus Design:Trinity College Next Generation Science Network and DMZ

Trinity College's Next Generation Science Network and DMZ project dramatically increases institutional interconnectivity and cyberinfrastructure capability to facilitate data-intensive research and teaching opportunities. The Science DMZ gives researchers and teachers an unfettered direct path to Virtual Research Networks, Connecticut Education Network resources, and Internet2, bypassing legacy control mechanisms and thus allowing for higher speed interconnectivity. The resource brings the level of connectivity typically found at a large research university into the unique environment of a small liberal arts college.

The network upgrade replaces outdated campus wiring and networking hardware with that capable of 1Gbps for end node connectivity and multiple 10Gbps interconnects to science servers and the Connecticut Education Network (CEN). This is accomplished with the installation of new routers and switches in the Trinity College (Hartford, CT) campus science complex buildings, as well as upgrades to cyber-border equipment connecting to the Connecticut Education Network (CEN), an Internet2 partner. The project includes installation of performance-oriented monitoring software (PerfSonar) and will give researchers direct access to IPv6 resources.